ITR: Project on Strengths and Limitations of Quantum Information Processing

EIA- 0080234
Saks, Michael
Rutgers University

Title: ITR: Project on Strengths and Limitations of Quantum Information Processing

This project provides an opportunity for an outstanding postdoctoral researcher to become involved in collaborative research in quantum computing with university and industry scientists. The project is investigating the use of quantum information theory in establishing time and communication bounds on quantum communication and computing. The project is also investigating space complexity, comparing quantum computers with restricted workspace to classical machines. Finally, taking advantage of the observation that all quantum algorithms that currently provide a time advantage may be viewed as black-box algorithms, the project is investigating use the "polynomial method" in proving lower bounds in the quantum black-box setting.